A Study of the Extension of the North Atlantic Current and Pathways of Exchange: Phase II - Data Analysis

9906775

Rossby

Raw data obtained from RAFOS floats, deployed as part of the Atlantic
Circulation and Climate Experiment, will be processed, quality
controlled, and then analyzed. The processed data will be used:
(a) to map out the paths taken by the waters of the North Atlantic
Current after it passes the Grand Banks, (b) to identify the locations
of, and processes responsible for, exchange across the North Atlantic
Current, (c) to map out the dissolved oxygen field on the density
surface followed by the floats, and (d) to obtain statistics of
particle displacements in the region. In addition, a short cruise
will be made to recover the submerged sound sources used by the floats
for navigation. The scientific tasks are designed to illuminate the
way in which the waters of the subpolar and subtropical North Atlantic
are exchanged and will contribute to developing an understanding of
the meridional transport of heat in that ocean.
9908091

Padman/Egbert

In this work, sub-surface current meter data will be assimilated into
two and three-dimensional numerical models of tidal flows in the
Weddell Sea. Inverse methods will be used to guide improvements of
parameterizations of the effects of diurnal vorticity waves and of
friction in the bottom boundary layer. Since the Weddell Sea is
close to the critical latitudes for the main semi-diurnal tide and
has weak stratification, the bottom boundary layer is thick and the
tidal flow is relatively barotropic, simplifying the modeling task
and allowing a better characterization of the flow by the current
meters.